Research Experiences for Undergraduates in Physics

A summer internship program in physics for undergraduates in the industrial midwest region will be carried out at Michigan State University. This is an area of the country with many colleges and a large number of physics undergraduates who do not have many opportunities for summer employment in technical and scientific areas. This REU award is directed toward broad-based recruiting in the region, and toward providing an environment for the selected students that will encourage them to pursue research careers in physics. Each student has his own research supervisor, who is either a professor in the Department of Physics and Astronomy or on the staff of the National Superconducting Cyclotron Laboratory (NSCL). The students meet regularly to participate in student and faculty seminar series. The program includes organized social activities and tours of research facilities.